US-CHINA COLLABORATION RESEARCH: DEVELOPING TRUE-CMOS MINIATURE INDUCTORS WITH STACKED-VIA MAGNETIC CORES FOR RF SoC

0302449
Wang

This is a cooperative project between Dr. Albert Wang, Illinois Institute of Technology, and Professor Feng Zhenghe, Tsinghua University, proposing to develop miniature inductors for RF System-on-Chip using innovative techniques. The research has potential application to wireless communication technologies and can significantly impact on the semiconductor IC industry. The project provides opportunities to train U.S. Stdents. The project is jointly supported by the National Science Foundation and the National Science Foundation of China.